SaTC 2.0: RES: Security of Quantum Machine Learning from Untrusted Quantum Cloud

Quantum computing is rapidly progressing, with Atom Computing and IBM recently unveiling 1,225 and 1,121 qubit hardware, respectively. Recent advances in Quantum Machine Learning (QML) have shown their potential in tackling previously unsolvable problems in finance, disease detection and drug discovery. QML models are claimed to be more expressive compared to the classical neural networks. Using QML, it is possible to exploit the high dimensionality of the Hilbert-space as a rich feature space for learning tasks to gain higher accuracy and faster learning. On one hand, QML models are attractive adversarial targets due to extremely high training cost and training time, expensive dataset and embedding of various Intellectual Properties (IP) and the unique operating principles and constraints of quantum computers. The quantum-specific issues cannot be fully addressed by the defenses from classical machine learning domain. On the other hand, third-party quantum cloud service providers are emerging offering potentially higher performance, cheaper access cost and/or lower wait time, all of which are important for the performance of QML models. This entices users to utilize these services. The novelty of this project lies in uncovering new QML attack models originating from untrusted third-party cloud environment and fortification of QML models for their secure operation. This project's broader significance is enabling the secure application of Noisy Intermediate Scale Quantum (NISQ) computers in the commercial, healthcare, energy, and defense sectors and advancing quantum computing education for K-12 teachers, including a professional development workshop and curricular materials that addresses local and national-level standards in science and engineering education. This project develops an undergraduate course supported by Penn State Quantum Minor program to prepare a quantum-ready workforce and contributes to Secure Artificial Intelligence (AI) and Quantum Initiative Acts.

This project highlights the complexity involved in seemingly simple attacks like training data reuse, reverse engineering and model theft and uncovers various approaches to demonstrate their feasibility. The project also develops obfuscation techniques for QML models to defend against training data and model theft and reverse engineering during training and inference. The project exploits hardware noise and optimizers used for training to embed watermarks in QML models to protect them from model theft. Together, these approaches harden the QML models against wide range of attack surfaces present in untrusted quantum cloud environment.